Conference on the Role of the Forebrain in Sensation and Behavior to be held May 26-27, 1989 at NASA/Ames Research Center

This action is to support a symposium which concentrates on the anatomy of the forebrain and the associated behaviors. Topics on which there will be concentration include: 1) the motor cortex and movement performance; 2) plasticity in the motor cortex; 3) the forebrain and pain perception; 4) the thalamus and behavior; 4) eye movement control; and 5) the limbic system and motor behaviors. This is an international conference and brings together scientists from around the world to discuss these diverse topics. The cross-disciplinary nature of this conference should provide new approaches to studies on brain and behavior.